Industry/University Cooperative Project: Phase Equilibrium Experiments in Fluid Systems at High Pressures

This work is part of a larger program, with the general title, "Molecular Thermodynamics," which combines the methods of experiment, theory, and computer simulation in a coordinated study of dense fluids. Experimental studies of pressure-temperature-composition (PTX) phase diagrams are underway for a variety of binary fluid mixtures that exhibit nonideal behavior, including gas-liquid, liquid-liquid, and gas-gas phase equilibria. Emphasis is placed on mixtures containing polar liquids (HC1, H;i2S, CH;i3OH, CH;i3C1, SO;i2, etc.) and on the effect of molecular shape on phase equilibria. The principal purpose of these experiments is to provide data of high accuracy, covering wide ranges of temperature and pressure (70 to 500;soK and pressure to 4000 atm), for use in testing and refining molecular theories of dense fluids. Among the molecules studied are: HC1, HBr, CH;i3C1, (CH;i3);i2O, CO;i2, COS, BF;i3, c-C;i3H;i6, NF;i3, NH;i3, C(CH;i3);i4, PF;i5, SF;i6.